SYMPOSIUM: Swimming in Opisthobranch Mollusks: Contributions to Control of Motor Behavior, January 4 - 8, 2000, in Atlanta, Georgia

Dr. Satterlie has organized a symposium that will be held in Atlanta, Georgia, January, 2000. The major scientists have been invited as speakers. This symposium will contribute to our understanding of the fundamental components of the nervous system required for rhythmic behaviors.